III: Small: Issues in Understanding, Indexing, Querying, and Visualizing Spatio-Textual Spreadsheets on the Web

Numerous organizations including government agencies are sitting on
mountains of spreadsheet data that are becoming increasingly common on
the web, but whose contents remain out of reach via search engines
because direct links to the contents of their constituent cells are
rare. Thus spreadsheet data represent legacy databases, especially
since many of their underlying schemas are no longer accessible. The
goal of this research is to discover the schema according to which the
spreadsheet is constructed. The focus is on the spatio-textual
spreadsheet which is a spreadsheet where the values of the spatial
attributes are specified textually. Such spreadsheets support spatial
searches whose output is visual and whose utility is enhanced by being
able to handle spatial synonyms. This is done, in part, by devising
methods to automatically discover the spatial attributes of the
spreadsheet as well as how to distinguish between several instances of
them which arise due to the presence of a containment hierarchy. In
particular, use is made of spatial coherence which is manifested by
observing that spatial data in the same column are usually of the same
spatial type, while spatial data in the same spreadsheet row usually
exhibit a containment relationship. Moreover, adjacent or nearby rows
exhibit spreadsheet coherence in that they are usually similar. The
broad impact of this research is to make spreadsheet data a first
class citizen on the web with the same chances of being discovered and
accessed as data found in other documents. Reports describing
results of this and related research will be available at
http://www.cs.umd.edu/~hjs/spreadsheets.html